EAGER: Guaranteed-Secure and Searchable Genomic Data Repositories

Publicly available and searchable genomic data banks could revolutionize clinical and research settings, but privacy concerns about releasing such information are currently preventing its usage. This project aims to address these concerns by providing new mechanisms by which individuals can donate their genomic information to a data bank in such a way that third parties, such as doctors or researchers, querying the data bank are guaranteed to learn only aggregate functions of the population's data that the individuals authorize.

The guarantee comes from the use of cutting-edge cryptographic techniques, specifically functional encryption. The project develops new functional encryption schemes that are highly tailored to genomic applications and support the above-mentioned system model. Additionally, these schemes support a core functionality of query types that the PIs identify for genomic applications. The PIs target reasonably efficient schemes as a proof of concept, and develop a prototype system to evaluate the practicality in real-world settings. This project addresses the immediate need for methods and technologies that provide safe and secure storage and retrieval of genomic information.